COACh Workshop for Women in Combustion

1360950
Ellzey, Janet L.

The requested funding is for a leadership workshop for women scientists in the field of combustion to be held at the site of the International Symposium on Combustion in San Francisco, CA on Saturday, August 2, 2014, the day before the Symposium begins. The workshop is based on COACh, an NSF-funded program, to develop leadership workshops for women in science. The goal of the workshop is to provide networking opportunities and leadership skills to both junior and senior women researchers in the field of combustion.